An Undergraduate, Interdisciplinary, Computer-Integrated Manufacturing Laboratory.

An interdisciplinary, undergraduate, computer-integrated manufacturing (CIM) laboratory will be set up. The laboratory will include an Intelledex six-axis robotic arm with an integrated vision system and a Brodhead-Garrett computer numerical control lathe and mill. The equipment will be interfaced to an IBM PC/AT and a Data General MV10000 mainframe for CIM experiments and system development. The laboratory will support an optional minor in computer integrated manufacturing for mechanical and electrical engineers in this growing area of need and interest.